SBIR Phase I: Smartphone-based Automated External Defibrillator

The broader impact/commercial potential of this Small Business Innovation Research (SBIR)
Phase I project is to save lives through the proliferation of miniaturized automated external
defibrillators that attach to smartphones. Sudden cardiac arrest (SCA) will kill more than 325,000
Americans this year outside of the hospital. An SCA can cause death if it is not treated in
minutes. If an AED is available, it can save a person's life; some estimates suggest a 27% increase
in the number of people who could be saved if AEDs are available and used when needed. A
miniaturized AED embedded in a smartphone case could save lives by making AEDs more
available and ensuring those who carry them are reachable by emergency medical services. The
strategy is to equip law enforcement, firefighters, EMS personnel, and potential citizen first responders
with this device and use smartphone technology to ensure they are reachable when
in proximity to someone experiencing an SCA. It provides an opportunity for a new paradigm in
first response: AED carriers that can be located during the first critical moments of an SCA.
Through this research, hundreds of thousands of lives can be saved each year.

This Small Business Innovation Research (SBIR) Phase I project will prove out the concept of a
regulatory-compliant miniaturized AED that integrates with a smartphone. The work includes
researching and designing components and electronics that will enable creation of this critical
medical device and accomplish three overarching goals: (1) design and develop the miniaturized
components, interconnects, firmware and software necessary to implement the hand-held AED
Smartphone case in Phase Two by evaluating high voltage power supply and switching
electronics and completing a power converter and switching design capable of generating the
required energy from an on-board lithium-ion battery and supporting a bi-phasic waveform; (2)
develop the smartphone software and firmware necessary to implement the device itself, guide
a user through the emergency protocol, and send GPS information to EMS to allow them to
locate proximal first responders; (3) integrate the hardware and software into a prototype that
demonstrates a path to a form factor function unit in Phase 2. Research and designs of
interconnects and encapsulation methods developed as part of this effort will offer insight into
the miniaturization of myriad electronics both within and outside the medical domains.